Constraints on Volatile Provenance in a Back-Arc Basin and the Degassing History of the Mantle: The He-Ne-Ar-H2O-CO2 Isotope and Abundance Systematics of the Manus Basin

9804916
Hilton
The volatile characteristics of ocean basalts provide key constraints on the geodynamic evolution of the Earth. This research will address these issues through an integrated study of the He-Ne-Ar-H2O-CO2 isotope and concentration systematics of oceanic basalts erupted within the Manus Basin (Bismark Sea) back-arc basin. All analyses will be undertaken on samples well-characterized for their major and trace element chemistry and radiogenic isotope characteristics. The objectives of the work are three-fold: (1) resolution of the major and rare gas volatile systematics of the Manus Basin into their component parts indicating derivation from or association with hotspot, MORB, arc and back-arc mantle and/or basaltic crust of the basin floor; (2) consideration of the effects of magmatic degassing on the volatile systematics of oceanic basalts through a comparison of samples having experienced varying degrees of degassing. Monitoring of the CO2/3He ratio as a function of degassing history is a particularly relevant parameter in this respect; and (3) evaluation of the utility of laser extraction methods for both rare gases and major volatiles by a comparison with data on the same samples obtained by conventional crushing and stepped-heating techniques. In particular, an attempt will be made to calibrate the length-scale of volatile heterogeneity (vesicles versus matrix) obtained by the different methods.